Purchase of an X-Ray Diffraction Unit for Undergraduate Geology

The Carleton College Geology Department will purchase a semi- automated x-ray diffraction unit. The diffractometer is needed by the Geology Department to teach modern x-ray techniques in mineralogy, soils, and advanced petrology courses. These classes will teach x-ray theory and practice in lectures and laboratory exercises. Virtually all geology majors take at least one of these classes. The diffractometer is also needed for student research projects, including senior integrative exercises required of each major.